U.S.-Germany Cooperative Research on Optimal Control MethodsApplied to the Study of Mesoscale Meteorological Model Sensitivity and Data Assimilation

This award supports Professors Douglas K. Lilly and John M. Lewis of the Cooperative Institute for Mesoscale Meteorological Studies (CIMMS), University of Oklahoma, to collaborate with Dr. Hartmut Kapitza and others of the GKSS National Research Center, in Geesthacht, Germany. The objective of their collaboration is to apply the principles of optimal control to improve the modelling of mesoscale phenomena and to improve the manner in which models and data are matched. In particular, they will work on extending a promising new technique called the "adjoint" method, that was originally developed by Dr. Karpita. He and his colleagues at GKSS have special expertise in modeling that is well matched by the U.S. group's expertise in the use of data from new observational systems being introduced in the U.S. that include sophisticated ground-based remote sensing techniques. The U.S. group will be able to help scientists at the GKSS to introduce realistic mesoscale data into the model, while research in data assimilation at CIMMS will benefit greatly from the opportunity to use the model and its adjoint on a variety of mesoscale meteorological problems. Deterministic models used in mesoscale meteorology are among the most complicated used in science today. The physical scales that must be included in the models range from the larger scale ageostrophic circulation around fronts to the microphysics of precipitation processes. This is further complicated by the need to interface with large scale models and to obtain boundary conditions. The observational demands of such systems are substantial, and the compilation and analysis challenge is extraordinary. The University of Oklahoma now has an NSF-funded Science and Technology Center, called "Center for the Analysis and Prediction of Storms" (CAPS.) The kind of data assimilation work being advanced by Dr. Kapitza and the German center is now one of the principal foci of the CAPS program plan.